Travel: NSF Student Travel Grant for 2026 New England Hardware Security Day (NEHWS2026)

The New England Hardware Security (NEHWS) workshop brings together hardware security researchers, industry participants, and students in the New England area, to develop connections and collaborations among research groups from 10 universities. NEHWS 2026 is the sixth edition of a regional event with international visibility. There will be a panel hosting international participants to discuss the different views on hardware security validation around the world. AI and quantum computing are two key topics in this edition. For the first time, NEHWS 2026 has partnered with the Journal of Cryptographic Engineering (JCEN) to enable the best submitted work to continue as a special issue.

This grant provides essential student travel support to enable U.S.-based students to attend NEHWS’26. Participation in this regional workshop is a critical part of a student's experience, offering opportunities to interact with senior researchers, present their original work, and be exposed to practical industry applications. By removing financial barriers to participation, this student travel grant will strengthen the collaboration among multiple universities in New England area and develop future workforce who will leverage AI and quantum to address the supply chain challenges in microelectronics and cybersecurity.